Analytical Instrumentation for an Environmental Studies Program

Randolph-Macon College has obtained instrumentation that supports laboratory instruction and student research in a new undergraduate interdisciplinary program in environmental studies, and also in a well-established and well-respected undergraduate program in chemistry. Specifically, we have obtained a capillary gas chromatograph equipped with a mass-spectrometric detector. The goals of this project include: putting the laboratory component of the new environmental studies major on a firm foundation, providing an interesting and scientifically rigorous laboratory experience for general-education non science majors, and enriching the laboratory curriculum for chemistry majors and minors. Another goal is to establish a connection with regional secondary-school teachers. A specific objective is the incorporation of project-oriented environmental chemistry experiments in the introductory environmental studies laboratory course and in the organic chemistry course, as well as in the advanced chemistry laboratory course sequence. Inclusion of project-oriented experiments has been shown to enhance student interest in laboratory curricula, and to prepare students better for the environmental and/or chemical workplace or graduate program. A further objective is to provide well-motivated senior environmental studies or chemistry majors an opportunity to carry out original research on a senior project in water pollution and air pollution. A third objective is to introduce sophisticated analytical instru- mentation to non science majors interested in environmental or forensic science. We are not aware of the use of GC/MS with lower-level science or non science majors (below the organic chemistry course); our target audience includes not only environmental studies and chemistry majors and minors, but also non science students who take these lab courses as a terminal experience.